SHF: Small: Memory Consistency -- Hardware, Compiler, and Programming Support

The advent of multicore machines has enabled delivery of high performance via parallelism for a wide range of applications. While such machines have become ubiquitous, they pose significant challenges for software developers. One challenge is dealing with the relaxed memory consistency models supported by commercial multicore machines. Simultaneously delivering high performance and ensuring program correctness requires careful introduction of fence instructions in the code. Excessive use of fence instructions leads to poor performance while their omission of can lead to incorrect program behavior.

This research will investigate means for constraining the scope of a fence instruction to minimize its impact on performance while preserving desired program behavior. In existing systems the hardware is unaware of the scope and hence fence implementations enforce a strict ordering of memory accesses across a fence that leads to unnecessary stalls. Alternative means for inferring the scope information will be developed for constraining the memory orderings enforced by the hardware. In particular, development of hardware, compiler, and programming support will be carried out. The software and hardware techniques developed in this research will be made available so other researchers are able to experiment with them. The subject of research is relevant to commercial processor manufacturers. The students involved in this research will receive valuable training in the design and programming of multicore systems.